Support for student travel to the 35th International Symposium on Combustion, San Francisco, CA / August 2-6, 2014

The proposed funding will be used to offset costs for student to travel to the 35th International Symposium on Combustion, San Francisco, CA August 2 - 6, 2014. The supported students are expected to have authored or co-authored an accepted paper and to presented it in person at the Symposium.